Purchase of an Instrument for Ultrafast, Multidimensional Fluorescence Detection and Imaging

With support from the Chemistry Research Instrumentation and Facilities: Departmental Multiuser Instrument Acquisition (CRIF-MU) Program, the Department of Chemistry at Arizona State University will acquire an ultrafast, multidimensional fluorescence detection and imaging system. The instrument has time and imaging capabilities. There are four research areas highlighted: photosynthetic and biommimetic systems, directed molecular evolution using synthetic libraries, nanostructures surfaces, and cell and tissue imaging studies.

Measuring time resolved fluorescence affords researchers direct insight into the local environment and dynamics around a probe. Techniques developed tomonitor time resolved fluorescence have been broadly applied to established fields such as photobiology as well as newly emerging areas in materials chemistry.